RIA: Modulation and Equalization for High-Speed Wireless Infrared Communications

9308968 Barry The Principal Investigator is analyzing the potential of diffuse infrared radiation as a technique for use in short-range wireless communication links providing network access to portable communicators and portable computers. The researcher is investigating the fundamental limitations on the speed of diffuse wireless links using infrared radiation, and determining which modulation and equalization techniques are best able to support high-speed communications. The award provides support for three years.